Third International Conference on String Phenomenology; August 1-6, 2004; Ann Arbor, MI

Support for the Third International Conference on String Phenomenology?

This proposal is a request for support to help cover the costs of organizing the conference “Third International Conference on String Phenomenology”. It will take place August 1-6 at the University of Michigan. The funds will be used entirely to support graduate students, Post-docs and junior faculty who otherwise could not afford to attend the meeting. The conference will cover recent advances in relating string theory to flavor physics, cosmology and model building beyond the standard model.